Tomographic adaptive optics with multiple laser guide stars

Proposal Title: Tomographic adaptive optics with multiple laser guide stars
Institution: University of Arizona
Abstract Date: 08/30/2005
AST-0505369 -- Lloyd-Hart/Arizona
The first multiple laser guide star system for adaptive optics wavefront sensing will be
built and commissioned. The system will be used for scientific observations at the 6.5
meter Multiple Mirror Telescope, taking advantage of the telescope's existing adaptive
secondary mirror, and a new, separately-funded mid-infrared camera. The completed
system will allow high-resolution imaging in the 1.5 - 5 micron infrared region.